Bloomington Geometry Workshop

Abstract

Award: DMS-0406174
Principal Investigator: Bruce Solomon, Christopher M. Judge

This award provides partial support for the 2004 Bloomington
Geometry Workshop, the third in a series of regional conferences
on geometric mathematics. The conference format encourages
interaction through participants, who are largely drawn from
Indiana and its neighboring states. Speaker selection is
intended to maximize scientific variety, participation by
historically underrepresented groups, and geographic diversity.